RET Site: Research Experiences for Teachers in Nanotechnology (RET-Nano) at Drexel University and the University of Pennsylvania

This award provides funding for a 3 year standard award to support a Research Experiences for Teachers (RET) in Engineering Site program entitled, "RET Site: Research Experiences for Teachers in nanotechnology (RET-Nano) at Drexel University and the University of Pennsylvania under the direction of Dr. Yury Gogotsi.

This Research Experiences for Teachers (RET) in Engineering Site is a renewal of a previously funded RET Site. With this renewal proposal RET-Nano will host during a 7-week summer program, 54 teachers, 18 teachers per year for three years to participate in summer research projects and continuing outreach and professional development activities at both Drexel University and the University of Pennsylvania. Teachers will be recruited from the School District of Philadelphia and surrounding districts and regional community colleges.